A Machine Vision Application Teaching Laboratory

With machine vision proliferating in the U.S. as an affordable tool for automation and quality assurance, it is becoming increasingly important that engineering technology colleges produce technicians and technologists capable of designing and integrating machine vision applications. Unfortunately, the machine vision application process is not taught at any engineering or engineering technology program in the country, since most programs that include machine vision prefer to concentrate on vision theory and processing algorithm development. This project addresses this critical need through the acquisition and integration of industrial quality machine vision equipment for an Automated Manufacturing Systems (AMS) laboratory and through the development od laboratory exercises aimed at teaching the process of applying machine vision and lighting technologies for real industrial projects. Acquiring the needed equipment - including an Application Lighting Investigation System (ALIS) - through this project corrects this problem and creates a truly unique teaching laboratory that fulfills industry's need for automation technicians and technologists. The potential impact of this project is as widespread as is industrial automation. In the university immediate area, there are at least five companies that are using or are considering using machine vision, and nationwide there are certainly hundreds.